SUNY Farmingdale Regional Center for Work Force Education

9411524 Diehl ABSTRACT Regional Center for Work Force Education The State University of New York, Farmingdale, in conjunction with SUNY Small Business Development Center, area industries and the New York Network is proposing an ambitious, well-thought-out program to establish a regional center for work force education. The proposal features video conferencing, television production, and distance learning in innovative ways. There is a strong commitment and focus on factory floor education. The participants plan to train 1500 individuals per year. Pilot efforts to date for this program have attracted strong industry participation and financial support. ***